Mathematical Sciences: Problems in Function--Theoretic Operator Theory

Operator theory is a central discipline in Modern Analysis. Its origins lie in the study of mathematical physics and partial differential equations in the early twentieth century. Thus, it was seen that numerous physical problems in the theory of equilibria, vibrations, quantum theory, etc. could be studied productively via the integral equations that model the phenomena. So it has been, that from the fertile minds of Hilbert, von Neumann, and other giants that the subject of operator theory has grown to a central position in such investigations, and in core mathematics as well. At the heart of this methodology is the deep investigation of the spectrum of an operator and the concommitant study of its invariant subspaces. For the so- called self-adjoint operators, this theory is now a standard technique throughout analysis, and the spectral theorem provides the necessary building blocks for all such operators. Although not quite as complete, spectral theory is significantly well understood for an extensive generalization of the self-adjoint case; viz., the "normal" operators. The current frontier, therefore, in the study of this structure theory rests in the non-normal theory. A particularly important class of such operators are referred to as "subnormal". They are significant for two reasons. First, there is enough residual normal information to attempt a deeper understanding for their inherent structure. Recent results, such as the fact that subnornmal operators are reflexive and have invariant subspaces, have given an added impetus to the study of their spectral properties. Secondly, since many explicit operators that arise in complex function theory, differential geometry, and approximation theory are subnormal, there is a broad range of applicability. Professor Kriete is a leader in the spectral theory of subnormal operators and its relationship to classical analysis, especially polynomial approximation. His contributions date back to a landmark paper on the spectral theory of the Cesaro operator in 1972. This work created new directions in spectral theory, with implications for the theory of special functions. Professor Kriete's work has had a particularly strong influence on the Russian school of operator theory. Professor Kriete's work of the past few years has been of the same high calibre as his earlier work. In the present proposal, Professor Kriete will investigate several problems at the interface of operator theory and function theory, all of which exhibit both significanct interest and difficulty. One such problem is the determination of when a composition operator on classical spaces in complex function theory has a subnormal adjoint. A second involves functional models for contraction operators. He will also continue his applications to classical polynomial approximation with emphasis on questions of splitting.